Engineering Research Equipment: Fourier Transform Infrared Spectrometer

This is a request for a Fourier Transform Infrared Spectrometer to be used by several investigators in the area of biomaterials. The equipment will facilitate research on material surfaces and new coatings: such research is essential for developing new materials that are suitable as biomedical implants. Since the investigators have good accomplishments in biomaterials research, it is expected that this equipment will further enhance their productivity.